Scanning Tunneling Microscopy Investigations of Low- Dimensional Materials

There is currently considerable interest in understanding the structure, electronic properties, and reactivity of metals and semiconductors since these materials figure prominently in many important technological areas including microelectronics and catalysis. To understand the macroscopic behavior of such systems requires knowledge of the structural and electronic properties at the molecular level. The overall objective of this study is to characterize with atomic resolution the structural and electronic properties of low-dimensional materials that exhibit interesting structural, electrical, and catalytic behavior. A the scanning tunneling microscope (STM) will be used to probe these key properties directly in real-space. Specific materials that will be investigated with the STM include tantalum disulfide/ diselenide, chemically-modified tantalum disulfide (i.e., metal-substituted, anion-substituted, and intercalated materials), and graphite intercalation complexes. Emphasis will be placed on characterizing in detail the structure and electronic properties of the charge density wave (CDW) phases in the metal dichalcogenide materials and on correlating changes in the CDW phases with the chemical modifications. The studies will provide systematic atomic-resolution data that will be compared with theoretical models to develop a better microscopic understanding of the structural and electronic properties of these interesting low-dimensional materials, and to understand how these properties can be varied through chemical modification. This award is jointly funded by the Solid-State Chemistry Program of the Division of Materials Research, and by the Analytical and Surface Chemistry Program of the Chemistry Division.